Astronomy in Chile Educator Ambassadors Program - Phase 2

This award will continue the successful Astronomy in Chile Educator Ambassadors Program, with the goal of increasing awareness of U.S. observatory facilities in Chile among the general public. The project will recruit Ambassadors from K-12 teachers, community college personnel, amateur astronomers, and planetaria. Ambassadors will conduct a large number public outreach events and public literacy programs, helping to connect the American public to our overseas scientific investments.

The program will carefully select a range of Ambassadors and provide them with training in science communication and public outreach. The Ambassadors will then be engaged with hands-on, in-depth experiences at three major U.S. observatories: the Atacama Large Millimeter/submillimeter Array (ALMA), the Gemini Observatory, and the Cerro Tololo Inter-American Observatory (CTIO). Each Ambassador will commit to conducting at least seven outreach events following their trip to Chile.